Molecular Mechanism of Pulsed-Field Gel Electrophoresis

The objectives of this project are to understand pulsed gel electrophoresis at the molecular level through a study of 1) the acceleration and alignment of DNA chains measured by video detection and fluorescence-detected linear dichroism; 2) fluctuations in the velocity of single DNA chains in gels using high-resolution, video-enhanced epifluorescence microscopy; 3) the mobility of bent-end and non-bent-end DNA; and 4) the effects of pulse frequency and angle on the width of DNA bands. Pulsed-field gel electrophoresis is a powerful new technique which can separate DNAs containing 50-6000 kilobasepairs by forcing the molecules to change direction periodically. Dr. Holzwarth is attempting to understand it at the molecular level.